Hands-On Experience with System Software: An Integrated Networking and Operating Systems Laboratory

Courses on computer networks and distributed operating systems rarely provide students with realistic hands-on experience. As computer technology moves into a new era characterized by multimedia communications and high-performance computing, this deficiency becomes more and more significant. It is imperative that changes are made at the undergraduate level to keep up with the evolution of theoretical and practical skills. A series of courses in computer networks and operating systems has been developed to address these changes. The success of this innovative curriculum depends to a large extent on this project, which funds the establishment of a modern networking and operating systems laboratory. This laboratory facilitates experiments with network installation, system administration and testing, multimedia (specifically audio/video) traffic control, and operating system management.